RET Site: Interdisciplinary Water Science and Engineering

Water is the critical element for supplying food and energy, safeguarding human health, and maintaining national security. A key component to any solution to address water-related challenges is to educate our youth about the cutting-edge aspects of water research. For this purpose, it is critical to develop professional development programs for teachers by engaging interdisciplinary water research experts. This Research Experiences for Teachers (RET) Site engages 10 interdisciplinary water experts and builds on the investigators’ prior successful RET site. A 6-week professional development program will be developed to engage grades 9-12, community college, and pre-service teachers in Southwest Virginia in interdisciplinary water research. Further, this RET site will help establish a community of teachers that fosters knowledge sharing, skill development, innovation, and a stronger professional support network. When teachers understand these interdisciplinary connections, they can help students see how water experts from different fields work together to address real-world water problems such as water quality, flooding, drought, and sustainability. By bringing current water research into classrooms, teachers inspire young scholars to become informed citizens, critical thinkers, and motivate them to explore the breadth of water-related STEM careers. Investing in teacher learning creates a multiplier effect, reaching hundreds of students and building a more water-literate and environmentally responsible society.

The overall goal is to provide teachers (grades 9-12, Community College, and pre-service) with an interdisciplinary water research experience. The specific objectives are to: 1. Develop and implement a 6-week research experience program for RET Site participants involving hands-on learning experiences in interdisciplinary water science and engineering, 2. Develop and implement a professional development program for teachers, 3. Guide RET Site participants in developing and implementing STEM-based interdisciplinary water research learning modules for their curricula, and 4. Grow a community of teachers mentored in interdisciplinary water research for support, collaboration, and dissemination of Site activities to a larger group of teachers. The RET site is distinct in integrating water engineering and sciences across coordinated themes and in scaffolded teams consisting of pre-service, in-service, and master teachers. Several new features include inclusion of pre-service teachers, as well as research themes related to Artificial Intelligence (AI) and biotechnology applications, to broaden the scope of the site. An experienced community college collaborator from the prior RET site will continue to work with the investigators to develop and implement effective strategies for teacher recruitment and follow–up activities during the school year. An external assessment expert and a curriculum development expert will provide guidance in project evaluation and learning module development, respectively. Investigators have access to excellent research facilities and resources to accomplish the goal. The proposed region for teacher recruitment will enable many teachers to share their research experiences with students that represent a diverse group throughout Southwest Virginia serving high-need rural and urban student populations. The project outcomes/learning modules will be shared at the national level through the TeachEngineering digital library as was done in the prior site.